Representation Theory of Reductive Groups

Abstract Herb Professor Herb plans to continue her work in the field of representation theory and harmonic analysis on reductive real Lie groups and p-adic groups. In earlier work on character formulas for discrete series representations of real semisimple Lie groups, she introduced the notion of two-structures. She now proposes to extend this theory of two-structures to obtain discrete series character formulas on arbitrary semisimple real Lie groups via lifting from groups locally isomorphic to direct products of groups which are real forms of SL(2,C) or Sp(2,C). She is also interested in investigating further properties of this lifting correspondence, and continuing to study induced representations for non-connected linear reductive p-adic groups. The theory of Fourier series was developed, starting in the 18th century, to study periodic functions of a real variable. The idea is to write an arbitrary periodic function as a sum of the well-understood trigonometric functions, that is expand a function in terms of its "harmonics." This theory has many applications in the sciences, in engineering, and in mathematics. Many of the basic ideas involved in Fourier analysis can be extended to analyze functions on any space with sufficient symmetry. For a given space, the problem is to find a collection of especially nice elementary functions, and then study how to expand arbitrary well-behaved functions as a sum or integral (continuous sum) of these elementary functions. These generalizations of Fourier series are known as representation theory or harmonic analysis. One class of spaces of special interest in physics and mathematics is the class of semisimple real Lie groups. Professor Herb plans to continue her work on the theory of two-structures for semisimple real Lie groups. This theory can be used to reduce some problems of harmonic analysis on general semisimple Lie groups to understanding the two easiest examples.